Experimental and Computational Analysis of Shear-Flow Anomalies for Nearly Monodisperse Polymer Melts and Solutions

9303112 Morrison A combined experimental and theoretical investigation will be carried out addressing the issue of melt fracture in the processing of polymeric materials. A set of experiments with monodispersive polybutadine and polystyrene will be conducted in various shear flows. The results will be compared to existing and new calculations on a variety of constitutive equations which predict viscoelastic instabilities. The investigators hope to establish an unambiguous constitutive explanation of melt fracture. If the investigators succeed in establishing such an interpretation of a so far ambiguous and controversial phenomenaon, it will open the door to eliminating failures from melt fracture in the processing of polymeric materials. ***